Engineering Research Equipment Grant: Equipment for the Optical Diagnostics of Dense Discharge Plasma for XUV Lasers

This Engineering Research Equipment Grant will be used to study highly-ionized dense plasmas in capillary discharges by optical measurements. In the capillary structure the walls are in close contact with the plasma and large heat conduction can lead to rapid plasma cooling rates. Intense electronon recombination is likely to result in the amplification of radiation in the XUV spectral region. The equipment provided in this grant will contribute towards completing the required facilities for detailed emission and absorption studies of the recombining capillary plasmas. An intensified gatable VUV-XUV diode array detector will be built and used with an existing vacuum spectrograph in time resolved measurements of the emitted plasma radiation. A dye laser will be pumped by an existing excimer laser and used to measure population densities of levels of interest. A mode locked dye laser pulse will be injected in an excimer pumped dye amplifier to generate higher energy subpicosecond pulses.